U.S.-Japan Sminar: Magnetic Multilayered Structures: May 1992: Honolulu, Hawaii

This award supports the participation of nine U.S. scientists in a U.S.-Japan Seminar on Magnetic Multilayered Structures, to be held May 15-17, 1992 in Honolulu, Hawaii. The co-organizers of the seminar are Professor Peter Levy, Department of Physics, New York University, and Professor Hiroyasu Fujimori, Institute for Materials Research, Tohoku University, Sendai, Japan. Among the topics to be covered are: (1) preparation and characterization of metallic multilayered structures and magneto-optics, (2) experimental and theoretical studies of their basic properties, e.g., phase transitions, interface magnetism (two-dimensional), magnetic anisotropy, and interlayer magnetic coupling, and (3) novel properties and technical applications, soft magnetic films, and giant magnetoresistance materials. Magnetic and metallic multilayered structures are a subcategory of the broader field of thin film research. The seminar participants have been chosen to cover some of the most impressive recent advances. These advances promote our knowledge of the microscopic interactions that control the properties of these structures and in addition they serve as a guide for the development of multilayered materials for such technologies as magnetic recording, information storage, and magneto-optical recording.